Electronics and Instrumentation Laboratory Development Project

This project equips the physics electronics laboratory with electrical measuring and test equipment at each of 8 lab stations. The goal is to enhance the experimental component of the two sequential electronics and instrumentation courses directed at physics and chemistry majors by improving the efficiency with which circuits can be analyzed, by creating instructional units on electromagnetic interference and susceptibility, and by adding a significant project component to the second course. A total of 18 weeks of laboratory exercises are being redeveloped for the new equipment, emphasizing hypothesis testing and quantitative analysis of circuit performance. The project relies on the students' increased sophistication in data collection and analysis as gained in the prerequisite introductory and advanced modern physics laboratory courses, all of which make extensive use of scientific equipment interfaced with personal computers.The equipment purchased included in each station a dual-trace analog/digital storage oscilloscope with attached digital plotter, a dual-display digital multimeter, a function generator with adjustable sweep, and an adjustable, regulated DC power supply. Six oscilloscope multiplexers and two digital LC meters have been acquired to supplement existing and compatible equipment. The digital multimeters are supplied with IEEE-488 interfaces to permit their use with the department standard hardware and software for student projects.